Special Project: U.S. Attendance at the 15th IFIP World Computer Computer Congress (WCC'98)

9805721 Waxman, Ronald Association for Computing Machinery Special Project: U.S. Attendance at the 15th IFIP World Computer Congress (WCC '98) This award provides partial support for 15 representatives from the U.S. to attend the 15th IFIP World Computer Congress in Vienna, Austria, and Budapest, Hungary, August 31-September 4, 1998. The International Federation for Information Processing (IFIP) is a multinational federation of technical organizations concerned with information processing. The Federation on Computing in the U.S. (FOCUS), a joint activity of the ACM and the IEEE Computer Society, serves as the U.S. representative to IFIP and is administering this project. The participants in the project are selected on a competitive basis by a committee of reviewers, with emphasis given to young researchers doing outstanding work and to applicants who have been accepted to present papers or are otherwise significantly involved in the conference.